SBIR Phase I: Dense Hydrogen Separation Membrane Based on Nanocomposites

This Small Business Innovation Research Phase I project seeks to develop high-efficiency, high-quality dense hydrogen separation membranes based on nanocomposites of a stable proton conducting ceramic and a metal phase. The proposed effort would result in highly conductive, chemically stable and mechanical robust membranes for hydrogen separation in high temperature, high pressure, and corrosive environments. In Phase I, basic composition-processing-microstructure-property relations of the membranes will be established through characterization of the microstructure and the performance of the membranes.

Ceramic hydrogen separation membranes have wide applications in integrated gasification combined cycle and in fuel reformer for PEM fuel cells. This technology will benefit the on going efforts in increasing hydrogen-to-carbon ratios in transportation fuels, decreasing pollute emissions, and use of alternative fuels.